ITR: Networking Urban Ecological Models Through Distributed Services

EIA-0219310
Peter McCartney
Arizona State University

Title: Networking Urban Ecological Models Through Distributed Services

Urbanization is a central force in altering core ecological processes such as biogeochemical cycling, decreased biodivesity and changing land use and land cover. Understanding and managing these processes is crucial to sustaining natural resources and maintaining quality of life. The goal for this project is to develop and deploy a distributed information infrastructure so that diverse members of the urban ecological research community in central Arizona can benefit from integrated ecological models and data. Government agencies involved will include the Maricopa Association of Governments and the Arizona Dept. of Water Resources.